CISE Minority Institutions Infrastructure: Building an Academic Pipeline for Miniority Scholars

9633299 Hiromoto, Robert Boppana, Rajendra University of Texas - San Antonio CISE Minority Institutions Infrastructure: Building an Academic Pipeline for Minority Scholars This project builds a pipeline of minority students, focusing on the retention of qualified undergraduate and graduate students by appropriate financial support and mentoring activities. The goal is to involve students directly in ongoing faculty research projects and thus prepare them for graduate studies and research programs. Graduate minority students involved in the program will help faculty in mentoring undergraduates, in addition to their own studies and research obligations. The project encompasses two main thrust designed to improve the pipeline of minority students prepared for graduate programs. The first goal is to aggressively recruit and develop minority students interested in computer science by providing preparatory training, tutoring, and mentoring at the pre-college and lower-division undergraduate levels. The second goal is to provide upper-division and graduate students with funding support and increased involvement in faculty research in order to improve minority retention and graduate enrollment. Students will be involved in faculty research within five important areas: 1) parallel and distributed algorithm design for applications in high-performance scientific computing 2) software visualization, and program execution monitoring; 3) parallel compiler technology; 4) network routing and scheduling algorithms; 5) parallel and distributed simulation techniques.